A Workshop and Report on Computational Geoinformatics

EAR-0422587
Cohen

This award will support a workshop in May 2004 to investigate the future high performance computational needs of the Earth Sciences community in the US. Funds will be used to support around 70 participants who span the fields of geophysics, geochemistry, and hydrology. Five working groups have been established and populated prior to the workshop, and a white paper will be presented to the Division of Earth Sciences after the workshop.